US-France Cooperative Research (INRIA): Simulation and Control of Constrained Mechanical Systems

9220802 Campbell This three-year award supports U.S.-France cooperative research between Stephen L. Campbell of North Carolina State University and Francois Deleecque of INRIA (French National Institute for Research in Computer Science and Applied Mathematics), Rocquencourt, France. Ramine Nikoukhah, Jean Pierre Quadrat, also from INRIA Rocquencourt, will participate in the project. The objective of their research is to develop optimal control algorithms for constrained mechanical systems, numerical methods and solutions for differential equations, and a computer environment employing symbolic, graphic and numerical software. Differential-algebraic equations (DAEs), which the investigators will utilize in their research, are found to be extremely useful for expressing and modeling optimal control of mechnical systems. DAEs have advantages over ordinary differential equations in that one can easily vary design parameters in an implicit model, a particular system structure can be better exploited, and less mathematical expertise is required on the part of the designer. The proposed research in numerical solution of DAEs is important for work in singular systems, which appear, for example, in circuits and power systems. Research results may include new and more efficient algorithms and design procedures that are applicable to a wide variety of engineering systems. The project takes advantage of the complementary background of the U.S. and French investigators in many different areas, including control and mechanics, numerical solutions of DAES, and computer software. ***